Experimental and Theoretical Investigation of Ultrafast Coherent Phenomena in Semiconductors

In this project we will investigate the semiconductor nonequilibrium many-body effects in a theory- experiment collaborative effort. We will attempt to demonstrate the first observation of Rabi oscillations (RO) and resonant propagation of strong femtosecond pulses in a semiconductor. Rabi oscillations and resonant pulse propagation, even self-induced transparency (SIT), have been seen in atomic systems, but have not yet been observed in semiconductors. Our many-body calculations have predicted that RO may be seen in semiconductors when femetosecond laser pulses shorter than the dephasing T2 times are employed. Also, these calculations predict significant modifications of strong pulse propagation and self-induced transparency in semiconductors, as compared to atomic systems. One of our goals is to perform cross- correlation experiments for pulses tuned to the excition resonance in a GaAs-AlGaAs multiple quantum well sample to verify these predictions and demonstrate the differences between SIT in semiconductors versus atomic systems. We plan to quantitatively investigate carrier relaxation and dephasing in quantum wells as well as in bulk materials under well- defined conditions. Theoretically, we recently found a new undamped acoustic plasmon mode in bulk semiconductors for suitable nonequilibrium carrier distributions. According to our calculations, the related ultrafast carrier-carrier scattering and dephasing should be significantly different for intrinsic, n- and p- doped materials, since the electrons in low momentum states are primarily responsible for the acoustic plasmon damping. Spectral hole burning in the gain region of semiconductors will be performed, and polarization dephasing times will be measured using the width of the burned holes. These measurements, which will be compared with our calculations, should yield important information on carrier relaxation and dephasing rates.